NSF Young Investigator

9357602 Mayes This NSF Young Investigator award deals with research and teaching in the area of finite size effects on the thermodynamics of polymer blends and copolymers, roughness correlations in multilayer thin films, the influence of compressibility on disorder-to-order transitions in block copolymers, and forced nonlinearity in addition copolymerizations as a synthetic route to new sequencing schemes. The research is both experimental and theoretical. ***